US-Japan Symposium on Drug Delivery Systems, December 16-20,1991; Maui, Hawaii

This is a request for partial support of U.S. participation in a Joint Symposium with Japan on drug delivery systems. The Symposium, first of its kind, will take place on Dec. 16-20, 1991 in Hawaii. The technology of making systems that deliver drugs continuously in controlled amounts is developing rapidly, and this Symposium will be an important step in exchanging information with Japanese scientists.